RESEARCH INITIATION AWARD: Nonmasking Fault-tolerance in Distributed Systems

9398640 Arora This project addresses the design, implementation and application of distributed systems whose input-output relation is violated only temporarily when faults occur. Such "nonmasking" fault- tolerance is often desirable in distributed systems for reasons of efficiency, computability, or application. One goal of the research is to demonstrate that a certain nonmasking fault- tolerant system, namely a stabilizing reset subsystem, can be implemented efficiently and utilized effectively in a wide variety of distributed environments. To this end, (i) software will be developed that augments any given distributed system with a stabilizing reset subsystem, (ii) tools will be implemented that measure the efficiency of nonmasking fault-tolerance, and (iii) applications will be demonstrated where the software is useful. Another goal of the research is to demonstrate that nonmasking fault-tolerant distributed systems can be designed in a uniform and rigorous manner. To this end, methods will be developed for (i) system design based on distributed constraint satisfaction, (ii) systems design based on stepwise refinements that preserve nonmasking fault-tolerance, and (iii) reasoning about nonmasking fault-tolerance in the presence of real-time actions and constraints. The research will build upon the investigator's prior work on a uniform and rigorous framework for reasoning about fault- tolerance. ***